Chattahoochee Systemic Initiative Planning Proposal

9554609 Purks CHATTAHOOCHEE SYSTEMIC INITIATIVE PLANNING PROPOSAL A collaborative of local educational agencies, higher education, business and industry, professional organizations of teachers, and Chambers of Commerce in a 65-mile radius of Columbus, Georgia, will engage in a twelve-month planning process leading to a teacher enhancement proposal for K-8 mathematics and science teachers. The project, which plans cooperation with the Georgia SSI, targets 10-25 school districts in Georgia and Alabama. The planning partners will assess resources, establish a foundation of collaboration among participating educational and community agencies, and plan a comprehensive, systemic initiative that provides for teacher enhancement in mathematics and science. Cost-sharing by planning partners is 78% of the NSF-requested amount.